SBIR Phase I: Automatic, User-Programmable Variable Volume Mixing for General-Purpose Programmable Lab-on-a-Chip

This Small Business Innovation Research (SBIR) Phase I project addresses the challenge of achieving variable volume fluid mixing at the microfluidic scale in the context of general-purpose programmable lab-on-a-chip devices (GPLoCs). Directly supporting variable volume mixing is fundamental to GPLoCs because GPLoCs may be programmed to perform multiple assays, where each assay may require arbitrary mix ratios. While fixed-volume fluid manipulation is well-studied in the literature, variable-volume fluid manipulation is not well understood. To enable variable volume manipulation, this project identifies and targets four key objectives: (a) inter-slug air gap elimination, (b) homogeneous mixing, (c) variable volume purging, and (d) support for extreme mix ratios. Further, one of the key goals of this project is to automate the entire process of variable volume mixing. The proposed research targets all the above objectives with innovations in hardware (novel mechanisms for fluid transport, metering, and purging) and software (software sequencing for extreme ratio mixing).

The broader impact/commercial potential of this project derives from the fact that successful variable volume manipulation directly enables GPLoCs, which have the potential to have far-reaching scientific, commercial and societal impact. GPLoCs enable faster experimentation and assay development, which can have significant scientific impact in the fields of proteomics, genomics, immunology, drug discovery, and biochemistry. Further, because GPLoCs can reduce the time-to-market for new assays, it has the potential to attract commercial assay vendors to the GPLoC platform, enhancing its commercial potential. On the societal front, GPLoCs could dramatically lower the costs of home diagnostic labs. Moreover, the automation inherent in GPLoCs would make GPLoCs more easily used by non-technicians (i.e., by home users). The combination of enhanced usability and lower costs has the potential to broaden access to sophisticated assays at home.